Data Management Workshop for Inland and Coastal Field Station

Data on natural populations and biological field station's habitat are a valuable resource, if properly managed and cared for. Successful data management requires field stations to take advantage of advances in technology, and to support staff at field stations. This project will support a workshop to be held April 22-26, 1990, at the Kellogg Biological Station, as a sucessor to a similar workshop held in 1982. The purpose will be to assess the progress that has been made since the earlier workshop, to share and disseminate information, to recommend standards and protocols to aid collaborative research and to propose new directions for which pilot programs might lead the way. The workshop will be co-sponsored by the Organization of Biological Field Stations (OBFS) and the Southern Association of Marine Labs (SAML), and will represent the diversity of sites and the various stages of development of data management systems in these two groups. Approximately 40 representatives from field station and marine laboratories will be invited to participate in one of three working groups: 1) Data Administration, 2)Database Standards to Facilitate Collaborative Research, and 3)Computers and Software for Data Management. A report of the workshops conclusions and recommendation will be made to the National Science Foundation, and distributed to the institutions constitution OBFS and SAML, as well as to other interested scientists.